Solid State Nitrides

9508522 DiSalvo The objective of this research is to explore the formation of solid-state ternary nitrides, their crystal structure and properties. This research is a continuation of studies of a class of materials that so far had been virtual y unexplored considerable technological utility. These include titanium nitride for wear resistant coatings on machine tools, aluminum nitride as a high thermal conductivity ceramic, and silicon nitride in numerous applications where hard impervious films are needed and can be deposited by low temperature chemical processes, as well as in bulk ceramics. This research will address the development of general methods for the preparation of small single crystals of the new phases to facilitate crystal structure determination, and the examination of materials that contain continuous networks of transition metal nitrogen bonds in one, two and especially three dimensions. The continuous network compounds are expected to exhibit a wider variety of physical properties and to be mechanically and chemically more robust. The synthetic methods to be used include preparation from oxides in flowing ammonia, growth of crystals from metallic fluxes, and high pressures and at temperatures from 500 to 1700 C. The structures of the compounds prepared will be determined by x-ray diffraction, and the electrical, magnetic and thermal properties will be determined. In some cases chemical properties, such as catalytic activity or redox chemistry at low temperatures (i.e soft chemistry such as intercalation) will also be examined. The chemical and structural behavior of these materials will be compared to related compounds such as oxides, sulfides or phosphides. %%% This research team has pioneered the study of ternary metal nitrides and discovered many new phases. The structure of some nitrides have shown that both the structural features and properties of some of them are rather unique. Yet there are many more systems left to investigate. These include compounds that are stabilized by alkali metals other than lithium, or by rare earth metals. There remain significant challenges in the preparation of single crystals and in compounds that are rich in the transition metal. The proposed research outlines approaches to these challenges and propose to continue the attack on this previously neglected family of materials. The expectation is that some of these materials will exhibit chemical or physical properties that may prove as useful as, or more so than, some of the binary nitrides. The hope is that some materials will exhibit novel phenomena that will lead to exciting science and perhaps even new technology.